Mathematical Sciences: Singular Perturbation Problems

The proposed research encompasses three problem areas whose common feature is the prominent role played by singular perturba- tion theory. The first area deals with boundary-value problems for differential-difference equations. The goal is to initiate an in-depth study of representative classes of problems of mixed type (involving both positive and negative shifts) and problems with small delays. The second area concerns singularly perturbed integral equations. The emphasis will be on problems whose solu- tions involve boundary and interior layer phenomena. Various classes of kernels will be considered including those with singu- lar behavior. Finally, the third problem area involves a study of certain nonlinear elliptic partial differential equations. Of particular importance is the sensitivity of singular points such as bifurcation and limit points to a small perturbation of the domain. The latter work has important application to elastic structures and to tubular chemical reactors.